CyberAI SFS: Training Next Generation AI-Proficient Cybersecurity Workforce for Offense and Defense

The University of Texas at Dallas (UTD) aims to address the growing need for cybersecurity professionals with expertise in artificial intelligence (AI) by establishing a CyberAICorps Scholarship for Service (CyberAI SFS) program. This program will train cohorts of CyberAI scholars in the latest AI techniques for cybersecurity, with a focus on developing their skills in AI for Cyber defensive and offensive operations. The goal is to produce a highly skilled workforce that can protect the nation's critical infrastructure from increasingly sophisticated cyber threats. This project is motivated by the significant benefits it will bring to training students in the field of CyberAI with technical coursework, cutting-edge research opportunities, and experimental projects integrating AI and cybersecurity. Upon graduation, these students will be placed in government organizations, where they will apply their skills to enhance national security.

This project aims to develop a CyberAI SFS program that integrates AI and cybersecurity education, with a focus on AI for Cyber. The program will recruit and train students in AI techniques, including generative AI, deep learning, and Agentic AI, as well as cybersecurity principles. The students will participate in hands-on experimental learning activities, including projects on AI-assisted vulnerability detection and AI-based defensive and offensive tools for cyber operations. The program's curriculum will be designed to meet the growing demand for CyberAI professionals for the government. The project will leverage UTD's expertise in AI and cybersecurity, as well as its partnerships with government agencies and industry leaders, to provide students with real world experience and mentorship. The expected outcomes of this project include a well-trained cohort of CyberAI experts as well as development of new coursework, research opportunities, and experimental projects that integrate AI and cybersecurity, ultimately contributing to the advancement of the field and the protection of national security.

This project is supported by the CyberAICorps Scholarship for Service (CyberAI SFS) program which funds proposals to increase national capacity to educate and train professionals in Artificial Intelligence (AI) or Cybersecurity, and to support their placement and retention in the CyberAI mission of government organizations. The Scholarship Track funds academic institutions to award scholarships to students in exchange for their government service. The Innovation Track seeks transformative education proposals in the areas of AI, cybersecurity, or the integration of AI and cybersecurity.